Volunteer Labor in Models of Altruism

The economics literature includes several distinct strands of inquiry into philanthropic behavior. This project expands the literature from focus solely on monetary giving to include the role of volunteer labor. Although dollar estimates of the value of volunteer effort in the U.S. exceed estimates if the value of monetary giving, research into volunteer labor supply has been scarce, hampered by a lack of data. Recent results have given information on the substitutability of time for money in the utility function of givers, allowing the possibility of extending the literature on crowding out to include volunteer labor. Charitable organizations use paid and unpaid labor and cash donations as inputs in producing charity. For various specifications of the productions function, the interrelatedness of gifts of money and gifts of time have implications for the degree of crowding out experienced in the economy as government varies its levels of spending for similar causes. Another direction of the research lies in the parallel between models of strategic altruism and the possibility of a strategic motive for giving through volunteer labor. The strategic altruism literature shows instances in which gifts made contingent on behavior can elicit efficient behavior from agents who would otherwise "misbehave". Many charitable organizations produce services which are difficult to measure, not in quantity and quality. If managers if nonprofits have incentives to deviate from the behavior desired by their donors, and if volunteer labor has, through proximity, a superior opportunity to monitor the actions of a firm than do more distant donors of cash, there may be a strategic motive for giving time rather than money. Furthermore, charitable organizations have a strategic motive for employing volunteers as a signal that they are truly behaving in accordance with the goals of their donor population.